Mathematical Sciences: Problem in Set-Theoretic Topology

9322613 Nyikos This project is aimed at some problem areas where interaction between topologists and set theorists seems likely to lead to significant progress in both areas. Set-theoretic topology has grown explosively in the last two decades as a result of such interaction, stimulating much fruitful research in set theory as well. In the last few years, however, the flow of results has shown signs of abating, and the development of new set-theoretic axioms and techniques will probably be needed to keep this area of topology in good health. The problem areas on which particular stress will be laid are hereditary normality; the structure and products of countably compact spaces; and the theory of nonmetrizable manifolds. Set-theoretic topology is more of a foundational subject than the rest of topology, primarily concerning itself with very abstract spaces and with the impact on topology of the adoption of variants of the axioms of set theory. Secondarily, it has applications not only to set theory and the rest of topology, but also to analysis and algebra, particularly the theory of Boolean algebras. Nyikos's research has emphasized all these aspects. For example, he has done an extensive study of the differential structures (i.e. smoothings) that can be imposed on the long line, and of the associated 2-dimensional manifold of its tangent vectors, providing valuable heuristics for those wishing to understand nontrivial smoothings of more familiar but higher-dimensional manifolds. (This is a subject of major importance today, especially in 4 dimensions, where the interplay with theoretical physics is strong.) Some of the smoothings of the long line required axioms outside the usual axioms of set theory. Nyikos has been a leader in the use of these axioms in set-theoretic topology ever since his involvement over a decade ago in the discovery that a famous unproved conjecture concerning Moore spaces was actually independent of the usual basic axiom s of set theory. Moreover, this conjecture was shown to be inconsistent with the Cantor Continuum Hypothesis, a far more familiar proposition that most working mathematicians would be likely to choose if they had to make a choice. This result suggests the flavor of the best set-theoretic topology. ***